Pseudorandomness and Parallel and Geometric Algorithms

This research involves the design of randomized algorithms that are especially economical in their use of random bits, and the study of the use of pseudorandom numbers in randomized algorithms. Under developmentive parallel algorithms for graph-theoretic problems and for testing relative primality. Geometric structures, such as the two-and three-dimensional Delaunay triangulation, will also be investigated.